SGER Determinants of Female and Minority Ph.D. Completion

As part of the efforts of a number of researchers to address the problem of underrepresentation of women and minorities at the doctoral level in science and mathematics, this investigator will test a model of determinants of PhD completion by analyzing by logistic regression methods data on PhD completion possessed by the National Research Council that can be linked to the records of those applying to the NSF's Graduate Fellowship Program up to about 1981. Variables such as completion or noncompletion of the PhD and time taken to completion will be related to factors such as individual and demographic characteristics, academic background, field of science, and market characteristics for PhD hiring in and outside of academia. The effects of receiving and not receiving a GFP award per se will be estimated. The analysis of this highly select group -- those applying to the GFP -- will bring previous work by other investigators by tracing PhD completion up to the mid- to late 1980s.